Contact State Space: Automatic Generation, Reasoning, and Search

In many robotic manipulation tasks, especially assembly tasks, motion of objects in contact is common and even desired in order to reduce uncertainties. An important tool in dealing with motion in contact is reasoning about contact states, which is the focus of this project. Specifically, this research has two major goals: (1) to investigate proper representation of discrete contact states and state transitions, and (2) to investigate criteria and techniques for automatic planning of contact motions in terms of contact state transitions. The first major research goal responds to the fact that although various ways of representing discrete contact states for polyhedra have been proposed in related research, there is a lack of general and systematic investigation on the best way(s) of defining/representing contact states and state transitions based on certain important criteria, such as (i) how easy it is to describe/represent state transitions, and (ii) how easy it is to distinguish adjacent states. The first criterion is important from the need of automatic generation of contact state space. The second criterion, addressing the granularity of representation, is particularly important from the need of automatic identification of contact states in the presence of uncertainties. The second major research goal is closely related to the first one and is particularly aimed at flexible assembly tasks. In pursuing both goals, theoretical concepts will be validated by experimental implementations and executions. This will result in a fundamental understanding of the physics of the most common assembly tasks and relate this knowledge quantitatively to the planning processes which can perform them in flexible assembly. This collaborative effort is expected to lead to results that will significantly impact the design, evaluation, generation and execution of conta ct-motion plans for automatic assembly in general.